Design Conditions for Robot Manipulator End-Effector Orientation

Research in robot end effector orientation is conducted. It has a strong kinematics element which could benefit from a new mathematical formulation called geometric algebra.